Plan for Teacher Enhancement in Geosciences in Northeastern North Carolina

Dr. R. P. Sinha of Elizabeth City State University in North Carolina will carry out the necessary planning activities to develop a high quality formal proposal for submission to the regular Teacher Enhancement competition. The project will address in-service need of area teachers in the earth sciences. In the final project 25 teachers will participate. Planning activities include meeting with various coordinating units to develop the detailed outline of the project, travel to and meeting with teachers who are representative of the target audience (especially minority teachers), meeting with Local Education Agency science supervisors and administrators, meeting with representatives of geological agencies such as U.S. Geological Survey, and documenting all aspects of the formal proposal. This planning work will be done during the summer of 1989 and into the 1989-90 academic year. A comparison of this planning proposal and its reviews with the resulting formal proposal and its reviews will provide data regarding the validity of the assumption that "planning grants to institutions which are poorly represented (Historical Black Colleges and Universities) in the regular Teacher Enhancement competition and awards will result in high quality formal proposals which can compete successfully." There is no cost sharing.